The Maury Project: Exploring the Physical Foundations of Oceanography

9353370 Geer This project, sponsored by the American Meteorological Society in partnership with the United States Naval Academy and assisted by the National Oceanic and Atmospheric Administration and the State University of New York at Brockport, will conduct a three and one- half year national teacher enhancement program to train 72 master precollege teachers in the physical science foundations of selected topics in oceanographic science. The teachers will be mainly middle-school teachers (Grades 6-8), joined by some high school teachers (Grades 9-12). All will be selected through a highly competitive process and will attend a two week summer program with a follow-up during the academic year and the following summer. All participants are expected to carry out in-service activities. Based upon the experience of earlier projects it is anticipated that more than 1500 teachers will be impacted by the project. In addition to the teacher enhancement component the project develops modules in oceanographic science utilizing the most up-to-date information prepared by experts in the field. Based upon these teaching materials an instructional resource manual, including classroom ready activities will be produced and distributed directly to teachers.